Inorganic Reaction Mechanisms in the Global Sulfur Cycle

ABSTRACT CHE-9319400 PI: Trogler Inst: U of Cal San Diego With this grant, the Inorganic, Bioinorganic, and Organometallic Chemistry Program supports research on reactions of carbon disulfide and carbonyl sulfide relevant to their behavior in the atmospheric sulfur cycle by Dr. William C. Trogler of the Chemistry Department, University of California at San Diego. Photoinduced oxidation with molecular oxygen, solution hydrolysis reactions including photochemistry, and catalytic oxidation by metal oxide components of aerosols will be investigated. Carbonyl sulfide, a regulated emission product, is an impurity in refinery and synthesis gas which can cause technical problems as a catalyst poison. Carbon disulfide is a neurotoxic byproduct of the production of rayon and carbon black. The fundamental chemistry of these atmospheric gases will be better characterized in order to understand the atmospheric sulfur cycle. In addition, their role in the production of stratospheric sulfate aerosols, which effect solar reflectivity and have been linked to global ozone depletion, will be examined.